Presidential Young Investigator Award: Matroid and Polyhedral Theory in Combinatorial Optimization

Research will be done on the fundamental mathematical structure and development of efficient algorithms. Matroid theory, a branch of mathematics which is fundamental to the theory of combinatorial optimization, provides a framework for understanding many efficiently solvable problems. Structural properties of matroids will be studied using techniques from connectivity theory. Polyhedral theory within combinatorial optimization deals with giving alternative descriptions of polyhedra. Research into finding linear descriptions for the polyhedra associated with variants of certain combinatorial optimization problems so that linear programming techniques can be utilized will also be studied.